ABI Innovation: Barcoding-Free Multiplexing: Leveraging Combinatorial Pooling for High-Throughput Sequencing

The University of California, Riverside is awarded a grant to develop
an innovative sequencing protocol for hierarchical (i.e., BAC-by-BAC)
genome sequencing of large eukaryotic genomes. At the core of the
protocol is the ability to solve a set of hard computational
questions, which are the focus of the research plan. The computational
challenges require the study of novel combinatorial optimization
problems, the development of innovative time- and space-efficient
algorithms, and ultimately the implementation and deployment of
user-friendly web-based software tools. The new combinatorial
sequencing protocol is going to be tested to the cowpea genome. Cowpea
Vigna unguiculata, also known as China bean or black-eyed pea,
is one of the most important food legume crops in the semi-arid
tropics covering Asia, Africa, and Central and South America. A
drought-tolerant and warm-weather crop, cowpeas are well-adapted to
the drier regions of the tropics, where other food legumes do not
perform well. Its modest genome size makes it an excellent candidate
to demonstrate the utility of our protocol. We expect the final
assembly to provide a sufficient depth of knowledge to support most
downstream applications including map-based cloning of trait
determinants, development of markers for marker-assisted breeding,
microarray development for gene expression studies and analysis of
synteny with related species.

This project will advance sequencing techniques for complex genomes,
using cowpea, an essential food source in developing
countries. Software tools and the assembled data will be placed into
the public domain, which will benefit researchers and the public
worldwide, and potentially lead to new international and industrial
collaborations. This project will directly support one graduate
students in a highly interdisciplinary environment, building on UCR's
strengths in Computer Science and Agricultural
Sciences. Undergraduates will have opportunities to participate in
research through a Research Experiences for Undergraduates (REU) site
at UCR, a collaboration with a nearby community college, and a new US
Department of Education Title V Hispanic Serving Institution grant
(UCR is an accredited HSI).

More details and information about this project will be available at
http://www.cs.ucr.edu/~stelo/dbi.htm